Dynamics and Optimization of Structures

The proposal studies optimal structured materials. These problems
require non-standard methods of calculus of variations that are
developed. The first project deals with materials or structures
with inner instabilities. Under ballistic impact, these materials
dissipate and radiate the energy in an abnormal high rate; the
effect can be used in various protective devices.
The second project aims to find the optimal structures for
multi-component composites. This problem is not solved even
for the simplest cases; the optimal structures are significantly
different from optimal two-material structures.
The third project deals with specific problem of ``inverse
optimization". It aims on understanding of optimality of natural
structures, as trunks of trees or human bones. Here we want to
determine the goal functional of the structural optimization from
the known structure and external conditions.

The three chapters of the proposal treat novel problem in theoretical
material science that require development of new mathematical methods.
All problems originate in science and engineering.
The first projects is concerned with new structures with a very high ability to
resist shocks. Such materials can be used in various protective devices or
containers. The second project addresses optimal structures of
composites that are made of three or more components. The study of such
structures is demanded by many engineering applications because the
majority of natural or artificial composites are made of more than
two materials. The last project aims to develop mathematical
methods for evaluating the optimality of biological structures.
The goal here is to understand in what sense biology is optimizing its
structures and to use biological "solutions" to evolutionary challenge
in engineering applications.